Mathematical Sciences: Martingale Theory and its Applications

The principal investigator will continue his work in Martingale theory, which impacts both probability and harmonic analysis. In particular, Burkholder will study square-function subordination of martingales, martingales and systems of nonlinear partial differential inequalities, and optimal control of martingales.